The Haystack Observatory as an REU Site for Astronomy and Atmospheric Science

Abstract Salah et al The Massachusetts Institute of Technology will host eight students annually at its Haystack Observatory to provide research experiences for undergraduates. The Haystack Observatory is a multi-disciplinary research center dedicated to radio astronomical research, using its 37-m diameter telescope. The facility is also used for studies of the earth's upper atmosphere by taking advantage of its 46-meter and 67-meter high power radars and available optical facilities. The students will be involved in the acquisition of data using the instrumentation, carrying out the analysis and interpretation of the measurements, as well as the development of hardware and software to improve the capabilities of the facility. Astronomical studies will involve the characterization of galactic radio emission sources and star formation investigations. Atmospheric studies will emphasize the effects of geomagnetic storms on the structure and dynamics of the earth's atmosphere, spectral studies of periodic variations observed in the upper atmosphere, and radio propagation effects. Technical projects include the digital design of signal processing systems, tests of advanced recording heads, and development of realtime control software. The students will work closely with a staff mentor throughout the summer, and will prepare a report and presentation on their projects. The presentations will be given at national conferences, and opportunities will be provided to continue some of the projects during the academic year. The students will be exposed to all aspects of the research facility through seminars and demonstrations at the various unique facilities, and will obtain a thorough practical experience of scientific research at a facility dedicated to research.